U.S.-Italy Program: Research in Particle Physics

9402775 Longo This award will support Kael Hanson's dissertation research in particle physics at the Gran Sasso underground laboratory near Rome, Italy, under the direction of Professor Carlo Bemporad of the University of Pisa, Italy. Mr. Hanson will use data from the Monopole and Astrophysical Cosmic Ray Observatory (MACRO). He will study upward-going electron neutrino interactions and will measure the ratio of upward-going electron neutrinos to muon neutrinos. While considerable effort has been devoted within the MACRO collaboration to upward-going muons, it has not been possible to look at upward-going electrons until the addition of an "attico," which makes it possible to identify upward-going electron events at a modest rate. This is a topical problem. There is at present a discrepancy in some published measurements of the muon neutrino flux which hints at neutrino oscillations and a non-zero neutrino mass. * * *